The Science Education Resource Virtual Diversity Center

Abstract

In partnership with the Science.gov Alliance, the principal investigator, Dr.
William E. McHenry and the co-principal investigator Dr. John S. Colonias propose to
create a web-based comprehensive one-stop science, technology, engineering, and
mathematics (STEM) educational resource tool the Science Education Resource Virtual
Diversity Center (SER Virtual Diversity Center). The SER Virtual Diversity Center will
feature: (1) STEM education programs by category of federal support; (2) promising
practices and lessons learned from federal STEM education supporting agencies as well as
from the institutions they support; (3) STEM-based educational resources for students and
parents; and (4) a virtual electronic campus designed to assist institutions in sharing
STEM educational courses and degree programs using the internet.

Merit. The SER Virtual Diversity Center will serve as the major STEM education content
portal for federal programs that target increasing participation from women,
underrepresented minorities, and persons with disabilities in the STEM workforce and
eventually serve as a tool for sharing information on all strategies designed to address
the nation's STEM workforce needs. The SER Virtual Diversity Center will use
technology-enabled processes to connect federal agencies with each other and with higher
education faculty and administrators; K-12 teachers, counselors, administrators; students
and parents in order to achieve dramatic improvement in efficiency for those involved in
increasing minority participation in STEM -- especially federal agencies.

Impact. As outlined in the BEST Report, the participation of American students in STEM
fields must dramatically increase if America is to remain competitive in a global economy.
With the American population becoming more diverse, students from groups that are
traditionally underrepresented in STEM fields must be encouraged to participate.
Historically Black Colleges and Universities (HBCUs), Hispanic Serving Institutions
(HSIs), and Tribal Colleges have a record of unparalleled success with these students. The
NSF's HRD Programs, especially the Model Institutions for Excellence (MIE) and alliance
programs, are examples of the impact partnerships between the federal government and
minority-serving institutions can have on increasing the capacity of those institutions
for producing STEM professionals. Purposively, the SER Virtual Diversity Center will
enable federal agency program officers to better access information across agency lines,
coordinate science education initiatives, and connect agencies more directly with higher
education institutions and their faculty and school districts and their teachers,
counselors, students, and parents to create STEM knowledge-based communities.
The authors propose to create a one-stop SER Virtual Diversity Center through which
federal agency program officers and others can view: (1) STEM education programs by
category of federal support; (2) promising practices and lessons learned from federal STEM
education supporting agencies as well as from the institutions they support; (3)
STEM-based educational resources for students and parents; and (4) a virtual electronic
campus designed to assist institutions in sharing STEM educational courses and degree
programs using the internet.